Scalable Unstructured Mesh Algorithms

The development of a comprehensive software environment based on scalable algorithms for the essential tasks required in unstructured mesh based applications. Unstructured mesh based approaches are a powerful tool in the analysis and modeling of problems involving dynamic, multi-scale features and complex geometries. This work will enable such large-scale scientific and engineering applications to take full advantage of parallel, high-performance computing systems.